Introduction of UV/VIS Diode Array Spectroscopy into the Chemistry Curriculum

Introduction of UV-VIS Diode Array Spectrophotometry in the Chemistry Curriculum A UV-VIS diode array spectrophotometer with a temperature controlled cell compartment, PC, monitor, printer and two software packages will be used in general chemistry and organic chemistry courses. This will upgrade the quality and quantity of spectroscopy based experiments in the laboratories. The instrument will also be extensively used in upper division courses. Theory and practice of UV-VIS diode array analysis will be introduced in Analytical Chemistry and more fully developed in Instrumental Methods, Advanced Laboratory Techniques, Advanced Inorganic, and student research courses. The grantee will match the NSF award from non-Federal sources.